Educational Software for the Physical Sciences K - 6th

This Small Business Innovation Research (SBIR) Phase I project has the objective of producing the design specifications for computer products that illustrate central concepts in electricity and magnetism, chemistry, optics, mechanics, and digital and analog circuitry to use to teach physical sciences to elementary school students. These products would be in the form of a series of animated educational games that would utilize a variety of formats such as adventures, problem-solving, and games. The proposed courseware could fill a critical need in schools and has potential for success in the home education/entertainment market as well.